Thin Metal Films: Nanostructure and Optical Properties

9311638 Rowlen This award is made in the Advanced Materials and Processing Program in support of the research of Professor Kathy Rowlen at the University of Colorado (Boulder). Support is provided by the Divisions of Chemistry and Materials Research. The research is concerned with the surface morphology and optical properties of thin metal films, specifically silver films. Atomic force microscopy will be used to measure surface features, absorbance will be used to characterize plasmon resonance and surface enhanced Raman spectroscopy will be used as an indirect measure of non-linear optical properties. Surface morphology will be characterized by the distribution about a mean for particle height, width, aspect ratio, and interparticle distance. These surface measurements will be used to test existing theory for the relationship between surface morphology and optical properties. %%% Thin metal films have become increasingly important in a variety of materials areas such as solar cells, electronic components and non-linear optical systems. These studies will elucidate the role of substrate on the surface morphology and ultimate properties of the films. ***